Support for Care and Use of the Herpetology Collection of the Academy of Natural Sciences

The Herpetology Collection (amphibians and reptiles) of the Philadelphia Academy of Natural Sciences is a mid-sized collection (roughly 30,000 specimens) that contains many types and early collections from the New World. Dr. John Cadle, Curator in charge of the collection, proposes to improve the collection through a general inventory, reorganization, updating of identifications, and implementation of a computer database. The database program chosen for this project, MUSE, is in wide use in other herpetology and fish collections. The proposed collection upgrade and computerization project will have substantial impact both within and beyond the herpetology research community. Important primary type specimens will be located and made accessible for systematic research. Early collections will give ecologists and biogeographers invaluable insight into the effects that several centuries of human occupation have had on the region's biodiversity. The renovated collections will be a long-term asset in research, public education, and the professional development of young herpetologists.